Fifth International Conference on the Effects of Noise on Aquatic Life - Den Haag, Netherlands, July 7-12, 2019

This award provides partial support for The Fifth International Conference on the Effects of Noise on Aquatic Life will take place in Den Haag, Netherlands, July 7-12, 2019. This meeting follows the very successful meetings on the same general topic held in Nyborg, Denmark (2007), Cork, Ireland (2010), Budapest, Hungary (2013), and Dublin, Ireland (2016) The major goal of the conference will be to define the current state of knowledge on the impact of underwater noise and, in particular, explore the progress made in this field in the three years since the previous Conference. The extension of renewable energy and petroleum projects to offshore waters, the prospect of industrial development of previously pristine waters (e.g., polar regions), and recent proposals to open new areas for petroleum lease (e.g., US Atlantic coast) has resulted in greater interest in the effects of underwater noise on aquatic life on the part of regulators, industry, and scientists.

The meeting should help shape future research and understanding of effects of noise on aquatic life. Based on experience from the earlier meetings, the interactions and networking that took place has resulted in new collaborations between investigators, a broader understanding of the science that can be used in their work by regulators, a better understanding of regulatory issues by scientists and industry, and substantial cross-fertilization of experimental design and approaches by investigators.